Mechanisms of Submicron Droplet Production and Ion Evaporation in Electrosprays

9319051 de la Mora It is proposed to investigate the physics of the formation of ultrafine aerosol particles from electrosprays, and ion emission from droplets. The experimental and theoretical study on particle formation is well documented, and has relevance in an area of focus of the Fluid, Particulate and Hydraulic Systems programs related to advanced materials research. The second part on ion emission seems difficult to be performed as described. The P.I. has a good track record in his previous grant. Four referees have rated this proposal with 3 Very Good and 1 Good. The P.I. is a creative researcher, who has the expertise as well as most of the experimental facilities to conduct the research. The first topic of the project, on the generation of monodispered submicron and nanometer particles, is highly recommended for funding. Several comments were made on improving the experimental approach (control of the residence time of the fluid in the Taylor cone during measurements) and a suggestion was made on using numerical simulations for data interpretation. It is expected that the P.I. will address a range of fundamental issues, with a reasonable chance of success. The second topic of the project has a lower chance of generating new, significant results as compared on the first topic, and has lowered the overall rating of this proposal. That area should be de-emphasized in the project. By considering the goal and quality of this proposal relevant to ultrafine particle synthesis and the unique theoretical- experimental background of the P.I., a standard three-year award of $225,000 with starting date on March 1, 1994, is recommended, with the following suggestions: (i) The main focus of the project will be on ultrafine particle production (ii) Numerical modeling of droplet formation should be investigated in order to better understand the mechanisms and to generalized the results. ***